The UNH Meteor Radar System: Global Wind Measurements

To understand the transport of energy throughout the middle atmosphere requires observations around the globe. Many observational programs are currently in place and form a network of observing stations comprising the global network required for understanding of the global wind fields and for testing and development of current global models. This project is primarily for the continuation of meteor echo measurements in the height range of 80 to 110 km made from Durham, New Hampshire. The observations will be used in a number of international and national campaigns as well as in more localized studies in conjunction with the Millstone Hill Incoherent Scatter Radar.